State-Sum Methods in Low-Dimensional Topology and Quantum Gravity - Categorical Underpinnings and Applications

9971510
Yetter
This project pursues a number of interrelated and complementary
lines of research related to state-sum techniques in low-dimensional
topology and quantum gravity. Some of these involve the categorical
underpinnings of state-sum techniques: the investigation of the algebraic
structure of TQFT's, of the deformation theory of categories with
structure, and the categorical underpinnings of ``state-integrals,'' i.e.,
measure theoretic analogues of the familiar state-sums. Others aim at
applications of the techniques to topology and quantum gravity: the
extension to the Minkowskian signature of the Barrett-Crane state-sum
formulation of Euclidean quantum gravity, the investigation and
construction of topological invariants related to the Barrett-Crane and
Crane-Yetter state-sums and their generalizations, and the investigation
of the relations between categorical deformation theory and the theory
of Vassiliev knot and link invariants.
This project seeks to investigate the structure of 3- and
4-dimensional spaces, both the abstract spaces of topology, and the
structure of physical space-times in certain proposed models for a
quantum theory of gravity. The problem of quantizing gravity is probably
the deepest unsolved theoretical problem in physics. It points to the
most fundamental unknowns in our understanding of the universe, such as
the origin of the universe and black hole physics. Its apparent
intractability by using traditional methods suggests that a radically new
type of mathematics may be necessary to solve the problem. The structure
of operators on spaces of quantum states, the algebraic structures
describing the assembly of spaces or knots and links from simple pieces,
and the algebraic data needed to construct state-sums with suitable
invariance properties to investigate both topological structures and to
construct ``spin-foam'' models of quantum gravity, can all conveniently be
described in terms of generalizations and extensions of the theory of
monoidal categories first introduced by MacLane in the early 1960's.
These facts, together with recent progress with the interrelated problems
mentioned above, lead to the hope that the theory of monoidal categories
may be the missing tool. Thus, much of the work uses category theory,
not as a substitute for set theory as a foundations of mathematics, but
as the appropriate sort of algebra for the investigation of spaces
abstracted from the one in which we live.
***